Structural Determination of Anthocyanins

This Minority Research Initiation Planning activity will focus on the structure elucidation of different anthocyanins found in fruits. Structures will be compared and the quantities present will be determined. Target species in which to investigate anthocyanin production, structure and quantity include Vitus (grape) and Vacinium (cranberry.) The fruits of both species produce high yields of extracted anthocyanins, and both can be adapted to uniform and consistent in vitro culture for controlled production of pigments. The results will provide basic information about the chemistry of anthocyanins and related flavinoids on which to focus future research. %%% The structures obtained in this research will help in the understanding of production of color in plant tissue, and will contribute significantly to our knowledge of one common class of plant pigments.